SBIR Phase I: Automated and Self-Service Electronics Recycling Kiosk

This Small Business Innovation Research (SBIR) Phase I Project proposes to demonstrate the technical and commercial feasibility of an automated e-Cycling station for consumer electronics recycling. The station will visually and electrically inspect used consumer electronics, and will allow consumers to receive immediate remuneration for their used electronics. A large worldwide market exists for a majority of used consumer electronics. It is estimated that the 2010 worldwide market for used phones alone is approximately $4.6B.

The unique approach proposed focuses squarely on the need to boost electronic recyclable collection volumes by reaching out to the owners of used handsets and providing both convenience and immediate incentives to draw them into the process. If successful, the company will be able to increase overall system efficiencies to create a sustainable and profitable business model with a dual bottom line.